Accurate, Efficient, and Stable Numerical Methods for Reversible-Irreversible Thermodynamically Consistent PDEs

Complex physical systems, such as those found in material science, fluid dynamics, and life science, often involve intricate interactions between energy-conserving mechanisms and entropy-generating processes. These systems are usually modeled by reversible-irreversible thermodynamically consistent partial differential equations (RITC-PDEs). However, solving these RITC-PDEs accurately and efficiently over a long time period remains computationally challenging due to their non-equilibrium nature and the need to preserve thermodynamic properties at the discrete level. This project will develop a general computational framework to solve RITC-PDEs while maintaining their energy conservation and nonnegative entropy production for long-time dynamic simulations and predictions. The proposed research will lead to a unified computational framework for studying multiscale non-equilibrium phenomena across various scientific disciplines, along with open-source tools for the broader research community. The project will support STEM education through outreach to K-12 students and educators.

Reversible-irreversible thermodynamically consistent (RITC) PDEs arise from the principles of thermodynamics. They are essential for modeling coupled processes involving energy-conserving(reversible, dispersive) and entropy-producing (irreversible, dissipative) dynamics. This project will develop high-order, accurate, efficient, easy-to-implement, and structure-preserving numerical schemes that maintain thermodynamic properties for RITC-PDEs. Specifically, the project will (a) design innovative structure-preserving discretization methods, including decoupled and high-order schemes, to accurately simulate complex RITC systems while maintaining their inherent thermodynamic consistency; (b) develop advanced time-stepping algorithms that ensure efficiency and accuracy for multiscale dynamics, by leveraging system properties such as energy budgets, entropy production, and topological changes to guide adaptive time step sizes; (c) construct a structure-preserving model order reduction framework that can generate reliable surrogate models for large-scale RITC systems; and (d) implement an open-source software package for simulating RITC-PDEs with GPU acceleration, adaptive meshing, and user-defined model inputs. Ultimately, the proposed research will lead to a unified computational framework to study multiscale non-equilibrium phenomena and contribute to the fields of numerical analysis, scientific computing, material science, fluid mechanics, and interdisciplinary modeling.